Undergraduate Fiber Optics Laboratory Experiments

A series of experiments in fiber optic systems and devices is being incorporated into a recently introduced undergraduate lecture/laboratory course on optics and optoelectronic systems. The experiments divide naturally into three areas: fiber optic device and component characterization, fiber optic communications networks, and fiber optic sensors. The students build ring and star networks and analyze them with an optical time-domain reflectometer and a bit-error-rate tester. Wavelength division multiplexing at 1.3m and 1.55m on single- mode fibers is investigated. Fiber optic sensors based on microbending, polarization effects, and interferometry are understood through hands-on experience.